I-Corps: An interactive flavor enhancing spoon

The broader impact/commercial potential of this I-Corps project is the development of an alternative methodology to enhance flavor sensations of food and beverages while reducing the consumption of excessive condiments such as salt. Although it is recommended that a typical American consumes less than 2300 mg of sodium per day to maintain a healthy eating pattern, the average consumption is 3500 mg per day. Most of the sodium consumed is in the form of salt, and excess sodium intake increases the blood pressure and risk for heart disease and stroke. It is also increasingly evident that the taste function of older adults and cognitively impaired patients diminishes significantly. This leads these groups to consume even higher amounts of salt as a flavor enhancer. The proposed technology stimulates these sensations to simulate taste. Potential applications include novel eating and drinking utensils such as a spoon, chopsticks, and beverage tumbler that aim to promote a healthier lifestyle by replacing or reducing unnecessary condiments such as salt. Patients on special diets (e.g., restricted use of salt in sodium-reduced diets) and the elderly (suffering diminished taste perceptions) may use this technology to enhance their taste sensations virtually, making their meals more enjoyable while reducing potential side-effects. Furthermore, this technology may have applications to treat medical conditions such as xerostomia and swallowing disorders.

This I-Corps project is based on the development of an “electric taste” technology that electronically simulates primary taste sensations, such as sour, salty, and bitter. It applies controlled electrical pulses to the tip of the tongue using pure silver electrodes; by controlling the frequency and the amplitude of current, it simulates different taste sensations. These utensils are embedded with electronics and silver electrodes and overlay virtual taste sensations when a user’s tongue is in contact with the silver electrodes. This enables people to experience digitally augmented taste sensations while eating and drinking.